Computational Nanotechnology

Chemistry (12)

This award is providing a dedicated molecular modeling Linux Cluster for use across the chemistry curriculum, including the integration of molecular modeling modules in honors freshman chemistry, honors organic, and experimental physical chemistry. A new computer laboratory course, Computational Nanotechnology is providing undergraduate chemistry students and other science majors an exposure to modern research techniques and emerging scientific are as. Computational Nanotechnology is training a new generation of skilled workers in the multidisciplinary approaches necessary for continued progress in
nanotechnology and is providing significant laboratory research experience. In this course, students are designing, building, and testing molecular devices, materials, and nanostructures adapted from the research and educational literature, including organic and protein-based molecular motors, surface interaction and self-assembly, and molecular dynamics simulations.